Discrete Models for High-Level Image Analysis

9803365
Valen E. Johnson

This project develops statistical models for automatic image analysis. The image models developed are defined by arbitrarily placing a large number of points, called facets, in a template image. The facet points are organized hierarchically, and are arranged either on grids of increasing resolution or determined using more sophisticated criteria, e.g., they may be located at local extrema in the scale-space of the image. Object shapes are established by connecting facets in a tree-like structure, and then using the shape of the tree in the image template to model expected shapes of facet trees in observed images from the class. Typically, thirty to forty thousand facets are positioned within a two-dimensional image template, whereas one-quarter to one-half million facets are placed within three-dimensional image sets (e.g., magnetic resonance images or positron emission tomography images).

Models generated under this proposal facilitate computationally efficient high-level analysis of generic images. These models are applicable to a wide range of image modalities, and require only that a template image or prototype image be available for the group of images under investigation. Given an image template for the class, derived models can be applied with little or no operator intervention to obtain automatic segmentation, object identification, and volumetric analysis for available image data.